Scientific Computing Research Enviroments for the Mathematical Sciences

ABSTRACT

Project Summary

The department of Statistics at Carnegie Mellon University will purchase a cluster of 32 Dual processors computers which will be used for several research projects, including in particular:

1. Computational Astrostatistics by Larry Wasserman and Chris Genovese

2. Statistical Genetics and Evolutionary Simulations by Kathryn Roeder, Bernie Devlin and Larry Wasserman

3. Data Analytic Approach to Seismic Imaging by William F. Eddy, Mark Schervish and Pantelis Vlachos

4. Parallelized Spatio-temporal Analyses of Functional Magnetic Resonance Data by Chris Genovese, William F. Eddy and Nicole Lazar